NSF Young Investigator Award

This research will develop mechanistic models to describe how inorganic matrix composites will behave in high temperature environments. Three specific areas are under study: effect of temperature change and mismatch in coefficients of thermal expansion on composite creep, deformation mechanisms in composite materials and composite processing.